To attend International Travel Grant Panel Discussion on Sustainable Development and Meeting of UPADI Committee on Sustainable in Rio de Janeiro, Brazil, August 15-19, 1993

9315819 Chryssafopoulos This award supports travel to the first meeting of the Committee on Sustainable Development of the American Association of Engineering Societies (UPADI) of the Chairman of the Committee. This gathering, which will take place in Rio de Janeiro, Brazil, on August 15-19, 1993, is part of the activities generated by the Agenda 21 that was developed during and after the United Nations Conference on Environment and Development in June of last year. ***